Collaborative Research: Modeling and Data Analysis of the Tropospheric Ozone Production about the Spring Equinox (TOPSE) Experiment

This project is a modeling study of processes that control the concentrations of oxidants at northern mid and high latitudes over North America. A suite of 1-D, regional 3-D, and global 3-D models will be used to analyze airborne observations collected during the Tropospheric Ozone Production about the Spring Equinox Experiment (TOPSE). Major scientific issues to be examined include: (1) the altitude and latitude distributions of the springtime O3 maximum and factors contributing to the variation in the spatial distributions; (2) the correlations among O3, NOx, NOy, CO, and hydrocarbons by time and latitude and their implications on the origin of the springtime O3 maximum and sources of HOx and NOx; (3) the impact of halogen radicals on chemistry in the Arctic and vicinity in spring. These studies will involve assessing the relative roles of transport and chemistry in the tropospheric chemistry of this region. Dr. Wang is collaborating with Yongqiang Liu, Georgia Institute of Technology, ATM-0000338.